Planning an Informal Science Education Program at the University of California, Davis

9550372 Gutstein The University of California, Davis will use this planning grant "Planning an Informal Science Education Program at the University of California, Davis" to redefine its relationship with and responsibilities toward the public. Outreach for them is being viewed as a interaction between public needs and interests and the university. Leadership will be provided by a committee of university faculty and an advisory board consisting of external university museum and science education professsionals will meet with project directors twice during the year. Together they will examine the regional science education needs, the existing public education activities at UCD, and investigate the potential for establishing a comprehensive informal science program. Among other things this will include the coalescing of various scientific collections (geology, entomology, anthropology, the botanical and arboretum collections) and their respective independent educational programming into a regional science education network. Advisors will include members of the UCD faculty and administrators as well as individuals representing external university museum and science education experts.